Undergraduate Institute in Physics-REU

*** Buck This grant will support a residential summer program REU Site at Hampton University. The selection of students will focus largely but not exclusively on those groups under- represented in physics. The research focus of the program will be on nuclear and optical physics. ***